Doctoral Dissertation Research: Schools, Families and Children's Food Allergies

Project Summary
Doctoral Dissertation Research: Schools, Families and Children's Food Allergies
Peter Conrad
Vanessa Lopes Muñoz
Brandeis University

About 4% of children reported a food allergy in 2007-an increase of nearly 18%
during the course of a decade. Preventing and responding to severe allergic reactions can
require the involvement of many actors in schools, restaurants, and childcare centers. By
examining how multiple actors adhere to food allergy policies and guidelines, this study
seeks to fill an existing gap in sociological studies of health and illness.

Intellectual Merit. A longstanding concern in sociology and in medicine is explaining
under what conditions, and to what ends, people adhere to medical regimens. Conrad and
others have argued that ill persons make decisions about following medical regimens
largely based on their everyday lives, making the case that daily social interactions are at
least as important as doctor-patient relationships. Conditions that are managed primarily
through lifestyle changes,such as changes in diet,raise questions about the role of
multiple actors in managing health conditions. To address these questions, this study
examines how families and schools adhere to food allergy policies.

Broader Impact. This study would expand knowledge about the management of health
conditions that are rising in prevalence-food allergies. Results from this study may
inform health policies related to an array of conditions that require intensive lifestyle
changes, such as asthma, diabetes, and food intolerances. Findings may also be of interest
to healthcare professionals, families, and school administrators. This research will be
used for a doctoral dissertation and in undergraduate teaching.